2010 Oceanographic Instrumentation for R/V Atlantic Explorer

A request is made to fund additional and back-up instrumentation on the R/V Atlantic Explorer, a 168’ general purpose research vessel operated by Bermuda Institute of Ocean Science (BIOS) as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. The request includes one item:

1) Ultra Low Freezer and shipping

Broader Impacts: The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.